DesignLab

9401021 Ambler This award provides support for the establishment of the Design Technologies Laboratory, or DesignLab. The laboratory will stimulate experimental research in technologies fundamental to building design support tools. Many such design support technologies are inherently nonprocedural and ill-suited to von Neumann uni-processor architectures. Efficient implementation strategies demand parallel and distributed computing environments with large shared memories and/or ultra high-speed interconnections. The requested equipment includes a 16-processor SGI Challenge and a very high speed network. The research topics to be explored include intelligent information databases for multimedia and 3D drawings; computer vision, modeling and visualization; declarative design specification languages; collaborative multi- agent design; meta-languages for defining reasoning systems; implementation strategies for non-procedural design technologies; and applied design technologies.